Mathematical Sciences Research Equipment

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences. It is for the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required by several research projects, and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers, and with substantial cost-sharing from the institution submitting the proposal. This is an instance of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment will be used in the following research projects: Terminal Singularities, directed by Ian Morrison; Homology of the Steenrod Algebra, directed by William Singer; Thue Equations, directed by Julia Mueller; Homology of Nilpotent Spaces, directed by Robert Lewis; and Goppa Codes and Drinfeld Modules, directed by Oisin McGuinness.